Symposium on Learning Methods for Planning and Scheduling

This will focus on the application of learning techniques for planning and scheduling problems. The meeting will bring together active researchers in machine learning, planning, and scheduling to exchange ideas and reports recent progress. The meeting will be held in Palo Alto, California, during January 1991, and the speaker will be well-known researcher in these three areas. The symposium will contribute to communication and cooperation amoung researchers in the different fields, and will advance our understanding of the role that learning can play in planning and scheduling systems.